Photochemistry and Strained Molecules

A study of the synthesis and reactivity of highly strained allenes will be conducted. The proposed investigation will include studies of cumulene photochemistry, asymmetric photochemical processes, photogeneration of carbenes, and photoinduced reactions to give highly strained allenes. A major objective is to develop general synthetic methods for the generation of strained dienes and trienes. The identity and reactivity of the highly strained intermediates will be detected by use of matrix isolation methods and transient spectroscopy. In addition, attempts to make high molecular weight cyclic-type polymers will be conducted via pathways involving strained intermediates. %%% This grant from the Organic dynamics Program supports the work of Professor Richard P. Johnson at the University of New Hampshire. These investigations will be aimed at the synthesis of highly strained organic molecules that are expected to undergo a variety of quite unusual reactions. By the development of general methods for the synthesis of such species, it should be possible to produce a variety of compounds which are currenty impossible to generate by any other process. The highly reactive strained ring species live for only very short periods of time and therefore specialized techniques are required to prove their existence.